Phase Transformation Kinetics in Ceramics: Role of Aliovalent Dopants

The objective of the proposed research is to examine the effect of aliovalent dopants on the kinetics of phase transformation in ceramics and identify fundamental transport mechanisms. Work is proposed on Bi2O3, CaTiO3-YCrO3, and PbI2-CdBr2 systems. Foe phase separation in these systems to take place diffusion on one or more sub-lattices is necessary. Doped and undoped samples will be fabricated, annealed, and examined by transmission electron and optical microscopy, and X-ray diffraction. The role of defect chemistry and the effects of aliovalent dopants will be explicitly included in the theoretical analysis of phase transformation kinetics. The proposed research will impact on the determination of phase equilibria in ceramics and the development of technologically important ceramic materials.